DLI-International: Integrating and Navigating Eprint Archives through Citation-Linking

Abstract

IIS-9907892
Lagoze, Carl
Cornell University
$93,607 - 12 mos.

DLI International: Integrating and Navigating Eprint Archives Through Citation-Linking

This is the first year funding of a three year continuing award. In this project, a 3-way partnership involving researchers from Southampton University, Cornell University, and the Los Alamos National Laboratory will hyperlink each of the over 100,000 papers in Los Alamos's unique online Physics Archive to every other paper in the archive that it cites. It is hoped that the power of this remarkable new way of navigating the scientific journal literature will help induce authors in others fields to join to create interlinked online archives like Los Alamos across disciplines and around the world.